Mathematical Sciences Research Equipment

This project is an equipment grant under the activity Grants For Scientific Computing Research Equipment For The Mathematical Sciences program. The project involves the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required jointly by several research projects and would be difficult to justify on one project alone. This research equipment support from the National Science Foundation is coupled with discounts and contributions of equipment from manufacturers and significant cost-sharing from the submitting institution. This project provides a good example of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. This equipment will be used for several research projects including: (1) development of interactive graphics routines with which algorithms for computing the pairwise intersection multiplicities of Hirzebruch-Zagier cycles in a compact Shimura surface will be implemented, (2) numerical methods for approximate solutions for various identification of parameters problems appearing in reservoir simulation, geophysics and biology, (3) creation of a symbolic computational environment in which the search for infinitesimal deformations of Lie algebra representations will be implemented automatically, (4) computation of finite subgroups acting on homogeneous spaces of a Lie group.